Mathematical Sceinces Computing Research Environments: Computing Equipment for Research on Graphics Visualization

9405158 Miner The University of Oklahoma Department of Mathematics hopes to purchase a graphic workstation from Silicon Graphics, Inc., and a 486 PC to serve as a terminal. The equipment would be used to help visualize the geometry of complex hyperbolic space and its boundary. In particular, we hope to use interactive three dimensional graphics to develop intuition for a wide array of problems concerning groups actions and fundamental domains, arc curvature, curve evolution, and quasiconformal mapping in the often surprising and relatively unexplored geometry of complex hyperbolic space.